Cross Linking the Electron and Photon Wave Devices

This grant is the study of photonic waveguide devices and electronic quantum-confined devices. Because they are based on the same wave nature, a cross pollination effect can be expected by linking them together. The performances and limitations of quantum-confined devices will be studied. Computer aided design tools for future-generation electronic devices will be developed. New photonic devices with applications in optical communications systems will also be explored.